POWRE: Integral Closures

This project is about problems related to integral closures of ideals, specifically on generalizations of the Briancon-Skoda theorem, on joint reductions, on divisor intersection theory, and on F-rationality of Rees algebras. The Pi will spend a year at the University of Kansas colaborating with Craig Huneke and Daniel Katz. A part of the project is to write a book on integral closures of ideals together with Huneke and to teach a graduate level course based on the book during the second semester. This POWRE project is supported by the Division of Mathematical Sciences (DMS) and the MPS Office of Multidisciplinary Activities (OMA).